PostDoctoral Research Fellowship

Although ethnic minority adolescents face many daunting challenges during their
transition to adulthood, many draw on unique cultural strengths to survive and thrive. Racial
socialization, the process by which parents and other socialization agents give adolescents
race-related messages, is one of the most important of these cultural strengths. The main aim
of this Social and Behavioral Sciences Minority Post-Doctoral Fellowship research and
training activity is to increase understanding of processes associated with the transmission
and receipt of racial socialization messages. The prospective project would draw on the
resources of New York University's Center for Research on Culture, Development and
Education (CRCDE, currently funded by a grant from National Science Foundation). The
center's diverse collection of scholars and focus on mixed methods will allow for the
exploration of both quantitative and qualitative data in the study of the racial socialization
process.
One of the largest unresolved questions about racial socialization concerns how
parent’s messages are communicated to and received by adolescents. Racial socialization
studies have largely used either parent or child reports of racial socialization, a practice that
precludes analysis of the relation between parent and child reports of racial socialization or a
thorough examination of the reasons behind successful communication of messages.
These discrepancies between parent and child reports of racial socialization are
noteworthy and merit further investigation for at least three reasons. First, an understanding
of the discrepancies can be used to help parents to talk to their children about race in ways
that enhance youths' identity and self-esteem. Ineffective communication about race and
ethnicity on the part of parents may undermine the protective functions such communication
is intended to serve. Second, advancement in this literature may help
mental health professionals and community leaders to further refine interventions and social
programs that help parents to talk to their children about race in productive ways. This
research will lead to evidence-based interventions and programs that improve mental health
and academic outcomes for ethnic minority adolescents. Third,
explaining the gap will link the racial socialization literature with a broader socialization
literature that has already grappled with discrepancies between parent and child reports of
socialization.
An initial goal of the proposed research is to explore how parent and adolescent
reports differ on three aspects of racial socialization: messages stressing group differences
and racial bias; messages that teach children about their culture; and messages stressing
distrust between racial groups. The proposed research will also examine how racial
socialization is affected by the broader context of parenting, including parenting style and
family functioning. Finally, the project seeks to broaden understanding of the racial
socialization process by examining the full range of contexts in which race socialization
occurs. Increasing knowledge of the race socialization process will inform interventions that
promote healthy conversations about race between parents and children.
During the time at the CRDCE, the fellow will collaborate with an interdisciplinary
team of scholars, including many minority researchers. The proposed activity consists of
research projects, seminars, and coursework that will enhance the fellow’s understanding of
ecological and developmental influences on the race socialization process. The fellow will
also enhance his knowledge of research methods by taking courses and consulting with
scholars on qualitative, mixed, and observational methods. The fellowship will also allow for
the potential fellow to work on at least three first authored publications and to work on other
papers at the center. The fellow's time at the center will provide increased preparation for a
tenure track position at a research university.